MRI: Acquisition of Instrumentation for Security Research and Training with Wireline and Wireless Information Networks

This project, augmenting capabilities for systematic analysis and evaluation of security vulnerabilities and developing new methodologies for prevention of security threats and attacks on information networks and networked systems, aims at improving end-to-end security of information infrastructures and realizing various security applications. The infrastructure services the following research:
-Security vulnerabilities characterization, testing and measurement for end-to-end networks and information systems;
-New anomaly detection algorithms utilizing outlier detection techniques;
-New hardware implementation methodologies and evaluation for intrusion detection/prevention schemes;
-New methodologies and non-proprietary test-suite for evaluation of performance of firewall and intrusion detection systems;
-Innovative schemes for computer network forensics;
-Analysis and prevention of security vulnerabilities and security monitoring with various wireless data networks.
The enhanced capabilities will contribute in the development of new methodologies and algorithms for security-vulnerability characterization and prevention. Additionally, non-proprietary test suites and a benchmark for a standardized security assessment and evaluation should be created.

Broader Impact: While servicing a large number of underrepresented individuals, this infrastructure should promote more exchanges facilitating more collaboration and contribute to hands on projects. Direct impact in retaining and retraining students should be felt from the new courses related to security analysis and evaluation and the summer internships.